IRES: Summer Research Experiences in the United Kingdom - Organometallic Chemistry

OISE 09-66420
Terence Nile
University of North Carolina Greensboro

This US-UK project provides 18 US undergraduate students (approximately 50% from under-represented groups) opportunities for training and research at the University of Bristol. The principal collaborators are Terence Nile at the University of North Carolina in Greensboro and Paul Pringle at the University of Bristol in the United Kingdom.

The students participate in a seven-week training program prior to their international research experience. This training addresses theoretical and practical aspects of organometallic chemistry research, as well training on ethics, library use and laboratory safety. The students then spend eight weeks in the UK working in the laboratories of several researchers.

This project fulfills the program objectives of providing US students with a global perspective and access to unique facilities and expertise related to synthetic organometallic.